Action Math and Physics Laboratory Experiences (AMPLE): An Enrichment Program to Develop Young Scholars in West Virginia

9552913 Frye Fairmont State College will initiate a three-week, summer commuter, Young Scholars project with follow-up during the academic year in physics and mathematics for 36 students entering the 7th and 8th grades. The summer component consists of laboratory classes in physics and mathematics. Student work manipulative, calculators and real world problems in the mathematics component. Physics laboratory classes focus on research related to energy and mechanics. Students participate in workshops related to their individual research efforts during the follow-up sessions. College orientation, career exploration land ethics of science activities complete the program.